Acoustic Measurement of Suspended Particle Concentration

Abstract
CTS-9977338
B.D. Barkdoll, U. of Mississippi

The objective is to systematically verify the principle of operation of a back scattering acoustic sensor for sediment transport. By using multiple sound frequencies one may obtain information on both concentration and particle size, for various penetration distances up to the order of several meters. The expected spatial (about 1 cm) and temporal (about 0.1 seconds) resolutions are suitable for sediment transport studies in channels and rivers. The investigation will be performed both in laboratory and field settings. Measurements with isokinetic probes and other sampling techniques will be used as reference data to calibrate the new device in the suspension streams. The project will provide student support in the University of Mississippi for performing the tests in collaboration with the Department of Agriculture National Sediment Laboratory, and National Center for Physical Acoustics. It will strengthen the infrastructure in the university with immediate use in other research projects. The project has a strong educational component. If successful, it will contribute to the development of a nonintrusive instrument to monitor suspended particulate matter in channels and rivers, and will contribute to infrastructure development in the University.